Nonparametric Cluster Analysis

The investigator studies the problem of finding groups in data
("clustering"). Most existing clustering methods make implicit or
explicit assumptions about the shapes of the groups, for example that
the groups are roughly spherical or Gaussian, and they will fail if
these assumptions are violated. The goal of the project is to develop
(i) nonparametric clustering methods capable of finding groups of
arbitrary shape; (ii) methods for assessing the statistical validity
of the clusters; (iii) tools for visualizing the results. Clustering
is cast as a statistical rather than a purely algorithmic problem. The
observed data are regarded as a sample from some underlying
population, and the goal is to estimate a well defined target
characteristic of the population - the cluster tree - from the
sample. Adopting a statistical view of clustering has two benefits:
(i) it allows comparing the performance of different methods; (ii) it
gives meaning to the notion of "cluster validity". Without a sampling
model and a target characteristic of the population the question
whether clusters are valid or spurious is meaningless. The proposed
method for estimating the population cluster tree is based on
analyzing a graph over the sample but, unlike most other graph-based
clustering methods, it is motivated by the underlying statistical
estimation problem. Assessing cluster validity - determining the
number of distinct groups, with "one" as a possible answer - has
proven a vexing problem, especially in the absence of prior knowledge
or assumptions about group shapes. The investigator proposes a novel
approach to this problem based on resampling.

Finding groups in data is a problem that occurs in many areas, from
genomics (identifying groups of genes with similar function based on
gene expression levels measured by DNA microarrays) to information
retrieval (spotting topics in document collections) to marketing
(determining distinct groups of customers with similar
characteristics). Clustering is an exploratory tool, and there
typically is little or no prior information about the shapes or the
number of groups. It is therefore important to have methods that
automatically determine the number of groups and do not rely on
assumptions about their shape, and visualization tools that help in
understanding the shapes of the groups, their arrangement in feature
space, and the influence of parameters of the clustering method on the
results.